Networking Urban Resources with Teachers and University to enRich Early Childhood Science (NURTURES) Phase II: Expansion and Evaluation

Building on successful prior work, this University of Toledo project, Networking Urban Resources with Teachers and University to enRich Early Childhood Science (NURTURES): Researching the impact of teacher professional development and family engagement on PreK-3 achievement, simultaneously targets young children's teachers and families/caregivers in an effort to build both parties' capacity to promote student interest in science, technology, engineering and mathematics (STEM) learning. Teachers participate in a two-week summer professional development program and receive support across the school year in the form of individualized coaching and participation in professional learning communities. Families receive science inquiry packets (sent home from school) four times a year and attend community STEM events throughout the year. Inquiry packets and community events encourage science inquiry, discourse, and further exploration of key science ideas. Project participants will include 120 teachers, 2,400 PreK-3 children and over 7,200 family members in Ohio and Michigan. The project is funded by the Discovery Research K-12 program (DRK-12), which seeks to significantly enhance the learning and teaching of STEM by preK-12 students and teachers, through research and development of innovative resources, models and tools.

Extending the initial NURTURES project, developed with NSF Math and Science Partnership funding, this follow-up project aims to: 1) Transform early childhood science teaching based upon Next Generation Science Standards (NGSS) to measurably increase student science, literacy, and math achievement, and 2) Engage families of PreK-3 students in science inquiry practices to measurably improve student science, literacy, and math achievement. A particularly important facet of this follow-up project is the research effort to parse and understand how each component (teacher professional development versus family engagement) impacts student learning. The project will use a randomized control group research design (RCT) to compare student achievement outcomes among three groups: Children whose teachers received professional development and family engagement activities, children whose teachers received only professional development, and a control group. The project will use standardized tests (the TerraNova Complete Battery) to measure impact on learning gains in science, mathematics, reading, and early literacy for children in grades K- 3. The Lens on Science assessment will measure science learning in preschool children. This project will result in an NGSS-based program for teachers and families that has been systematically tested and may ultimately be scaled up to an impact study and dissemination at a broad level.